Acquisition of an EPR Spectrometer at Southern Miss

With this award from the Chemistry Research Instrumentation and Facilities: Multi User program (CRIF:MU), the Department of Chemistry at Southern Mississippi University will acquire a micro series electron paramagnetic resonance (EPR) spectrometer for solution and frozen matrix investigations of organic radicals, coordination complexes of paramagnetic ions (both biological and non-biological), magnetic materials, polymers, catalysts, and reactive intermediates such as reactive oxygen species.

An electron paramagnetic resonance (EPR) spectrometer yields information on the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals, short-lived species that are often essential for the initiation of tumor growth and/or a variety of chemical reactions. These studies will have an impact in a number of areas, from manufacturing to materials and biological chemistry.